Measurement of Ozone in the Marine Boundary Layer from Ocean Buoys

This project involves the construction and testing of a buoy-mounted instrument to measure ozone over the ocean surface. This instrument will be used in future projects to study ozone climatology, trends, and transport over the ocean, and the oxidation capacity of the marine boundary layer. It will also be an initial step in the development of atmospheric chemical sensors for buoys. Buoy-based measurements over the ocean are ideal for studying long-term trends, since stations can be set up far from most point sources of ozone precursors. The development of the buoy-mounted ozone sensor will involve a collaboration between Woods Hole Oceanographic Institution (WHOI) and Physical Sciences Inc. (PSI), of Andover, MA.